Interfacial Processing for Emulsions: Droplet Breakup with Inertia, Non-Newtonian and Surfactant Effects

Abstract
CTS-0090381
Yuriko Renardy, Virginia Polytechnic Institute & State University

The PI proposes to use an advanced numerical code developed by the PI and her group to perform simulations of rheologically-complex two-fluid systems. The code is based on the volume-of-fluid method for interface tracking with additional elements for solving the Navier-Stokes equations and for modeling the interfacial tension. The code will be applied to investigate drop evolution in pipe flow, the evolution of bicomponent flows through channels, the flow of polymer dispersions, and the breakup of droplets. Collaboration with a number of experimental researchers both in this country and abroad is planned.